Purchase of a Tandem Mass Spectrometer for Research in Chemistry

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Office of Multidisciplinary Activities (OMA) will assist the Department of Chemistry at University of Utah to acquire a tandem mass spectrometer. This equipment will enhance research in a number of areas including the following: (1) RNA-binding polyamides via encoded combinatorial synthesis, (2) phosphorus-containing molecules based on 2'-deoxynucleosides, (3) analysis of RNA-binding proteins and peptides, (4) DNA mismatch recognition and repair by metalloenzyme MutY, and oxidative alkylation and degradation of guanine in DNA and RNA structures. Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The addition of the technique of electrospray extends the range of MS to proteins and nucleic acid molecular weights far beyond any other technique. The use of electrospray ionization in combination with high resolution provides the latest techniques available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry.